Collaborative Research: Chromatic homotopy theory and open string theory

Abstract

Award: DMS-0705233, 0705381
Principal Investigator: Matthew Ando, Eric R. Sharpe

Ando and Sharpe will investigate several questions in elliptic
cohomology suggested by the physics of open string theory. In
physics, elliptic genera arise in closed string theory, but the
recent work of Stolz and Teichner and of Borisov and Libgover and
Ganter strongly suggests that open string theory plays an
important role in elliptic cohomology. Ando and Sharpe propose to
introduce recent developments in open string theory, particularly
ideas about D-branes and K-theory, to the study of elliptic
cohomology. For example they hope to use open string theory to
investigate the relationship between elliptic cohomology and the
K-theory of K-theory, as studied by Baas, Dundas, Richter, and
Rognes. They also hope to give a unified account of the McKay
correspondence for elliptic genera, due to Borisov and Libgober,
and for sheaves, due to Bridgeland, King, and Reid.

Elliptic cohomology arises from topology, and it signals a
profound relationship between physics, particularly the physics
of string theory, and at least two branches of mathematics,
topology and number theory. Precisely how these things are
related through elliptic cohomology remains mysterious: the
physicist Edward Witten called elliptic cohomology "a piece of
21st century mathematics that happened to fall into the 20th
century." Until very recently, the study of the physics of
elliptic cohomology has focused mainly on "closed" string theory,
in which particles are replaced by loops of string. There is now
a rich theory of "open" strings, in which particles may also be
unlooped strands of string. Ando and Sharpe suggest that the
physics of open string theory has deep implications in elliptic
cohomology. They propose to investigate several of these
implications, which they hope will shed light on some of the
important mysteries in the subject.